Nonperturbative string theory

Research in theoretical physics will be carried out, focussing on
foundational aspects of string theory. String theory is the
most promising candidate for a consistent description of quantum
mechanics and gravity, and has advanced rapidly in recent years.
Research will particularly center around understanding the decay
of unstable systems in string theory, as well as obtaining a better
theory of black holes. Both questions involve fundamental aspects
of string theory and so are important to the development of the subject.